Group Travel for U.S. Participants in the 15th Texas Symposium on Relativistic Astrophysics, Brighton, England

This is an award of travel funds for U.S. scientists to attend the 15th Texas Symposium on Relativistic Astrophysics, to be held in Brighton, England, on December 16-21, 1990. The meeting is being held jointly with the 4th ESO-CERN Symposium on Astrophysics, Cosmology, and Fundamental Physics. The Texas Symposia take place every other year, and every third meeting is held in a foreign country, to enhance its functiomn as an international summary of recent developments in Astrophysics and relativity,